Experimental Research in Elementary Particle Physics

9423062 Shephard This group of 3 faculty, 2 postdoctoral associates and 6 graduate students has been pursuing a diverse program of research in particle physics. Its members, together with collaborators at other institutions, are completing analysis of Charm particle photo-production data obtained in 1990- 1991 at the Fermilab Tevatron and is searching for exotic particles, glueballs and others, among data produced in an experiment at the Brookhaven National Laboratory Alternating Gradient Synchrotron, ***